Constrained Power and Performance Optimization for Embedded Systems

Constrained Power and Performance Optimization for Embedded Systems

The goal of this research is to explore techniques for power management of
embedded systems with provable bounds on power efficiency as well as adverse
effects on latency due to power management. The current state of the art in
system-level power management is limited to shutting parts of a system after
a certain period of idle time, thus ignoring the application timing
constraints, runtime traffic and application usage information. This work
will develop power-performance control "knobs" that will allow us to make
effective online decisions. Specific applications will include power-aware
resource scheduling in RTOS, timing-aware power optimizations and tradeoffs
between power savings and application quality of service (e.g., missed
deadlines).

Our technical focus is on solving two key problems: (a) latency-constrained
power optimization, i.e., minimization of system-level power consumption
with constrains on the effect of system latency due to power management; and
(b) power-constrained performance optimization, e.g., system-level task
implementation and scheduling within a given power budget. As a first step,
we focus on analytic bounds on the effectiveness of online power management
algorithms and their efficiency by developing bounds on latency increases
due to power management. We introduce the notion of a competitive ratio as
a quantitative measure of how well a given power management algorithm
performs against an optimum power consumption profile. Next, we incorporate
these analytic bounds in a broader system-level timing and power simulation
engine which enables an accurate performance simulation while minimizing the
details related to actual system functionality. Our experimental evaluation
is through RTOS implementation of new power management services through
coordinated scheduling and resource shutdown.